Option Generation: A Broader Perspective

This proposal addresses the question of option generation and how people make use of available information to solve problems and formulate decision strategies. The proposed project will use protocol analysis to trace subjects' decision making processes and then will use this information to test hypotheses about knowledge activation that are considered to be important for future developments in decision support systems. The project is expected to yield both general insights, concerning the effect of task characteristics on problem solving, and applied insights, concerning the mental modelling and strategy formulation processes used by managers. These topics are of interest to a large body of researchers because of their linkages to the study of cognitive processes and because of their practical implications for the development of improved computer-based decision support systems.